Francis Bitter National Magnet Laboratory (FBNML)

This proposal addresses a funding request for the continued funding for an additional three years of the Francis Bitter National Magnet Laboratory. Major elements of the request include continuing the user program, reinstituting the core in- house research program, and installing a new power supply